Forensic Science for Introductory Chemistry Courses

Various units for the lecture parts of the courses will be developed, refined and expanded. Units such as these with a "case" oriented approach have been shown to stimulate the interest of students in chemistry, but many more are necessary for this course and for other introductory chemistry courses.